Tribal Colleges Building Tribal Communities: A Workshop Proposal

This project will convene tribal college leaders and faculty, tribal community leaders, and other policy stakeholders in a workshop to disucss the future of tribal colleges in the new century. The PI has a vast background in writing about tribal college history and current progress. The proposing institution has its roots in tribal college leadership, and has a strong track record of facilitating such activities. The proceedings will be compiled and publicized by the PI, and can be used to inform tribal college policy decisions.